ITWF: Collaboration through Agile Software Development Practices: A Means for Improvement in Quality and Retention of IT Workers

ABSTRACT

Information Technology Workforce (ITWF) - FY03

Proposal ID: EIA-0305917
Investigator: Laurie Williams, Winser Alexander, Sarah Berenson, and Mladen Vouk.
Institution: North Carolina State University
Title: Collaboration through Agile Software Development Practices: A Means for Improvement in Quality and Retention of IT Workers

North Carolina State University at Raleigh (NCSU), North Carolina A&T University and Meredith College have been awarded an ITWF grant for a 3-year study of the collaborative aspects of agile software development methodologies. The project's objective is to perform extensive, longitudinal experimentation in advanced undergraduate software engineering college classes at the three institutions to examine student success and retention in the educational and training pipelines when the classes utilize an agile software development model. The project will also involve the development of agile software development materials for software engineering classes.